Geometry of Non-abelian Hodge Structures

Tony Pantev uses techniques from both the abelian and
non-abelian Hodge theory to approach concrete geometric questions as well
as problems in cosmology, mathematical physics and string theory.
The investigator and his collaborators study four problems. The first one
describes a conjectural Hodge theoretic criterion for deciding whether
a given homotopy type underlies a smooth projective variety. The
second concerns the symplectic topology of four manifolds, fibered
over the two sphere. The third project
designs an explicit construction of sheaves on a gerby K3 surface
and discusses its relations to the physical notion of non-commutative
deformation of fields. The fourth project proposes an explicit
construction of the special coordinates on the moduli space of
Eucledian $D$-branes by means of secondary Abel-Jacobi maps.
The understanding of these questions is essential for unifying various
linearization procedures in algebraic geometry, symplectic topology
and mathematical physics. It brings us closer to understanding the
basic structure of algebraic varieties and
enhances the geometric arsenal of techniques for building explicit
models of string theory vacua.

This is a research in the field of algebraic geometry. Algebraic
geometry is not only one of the most intensively researched parts
of modern mathematics, but also a crucial testing ground for the
recent influx of revolutionary mathematical ideas coming from string
theory physics. The investigator's research sets the stage for a
rigorous treatment of the hard conjectures generated by our
current understanding of string dualities and enlarges the arsenal of
available tools for understanding the physics of strings. The
investigator's methods are applicable to a wide range of concrete
problems in astrophysics, quantum gravity and string theory.